Workshop on Recent Advances in General Topology, Dimension Theory, Continuum Theory and Dynamical Systems

Workshop on Recent Advances in General Topology, Dimension Theory, Continuum Theory and Dynamical Systems

Nipissing University, North Bay, Ontario will offer a Workshop on Recent Advances in General Topology, Dimension Theory,
Continuum Theory, and Dynamical Systems in order to bring senior and junior researchers and students in these areas together
for a five-day series of talks and seminars. The workshop will be held at Nipissing University campus in North Bay, May 17-22,
2012. It will be jointly supported by the National Science Foundation and the Fields Institute of Canada. The scientific focus
of the workshop will be on recent advances in topology, including dimension theory and continuum theory, and dynamical systems.
Senior researchers will share fundamental research techniques and recent results with attendees, including post-doctoral,
graduate and advanced undergraduate students, and junior researchers who received the PhD within the last 6 years. Among other
topics, recent results on the topology of buried points in Julia sets, the solution of Lelek's problem on the span of continua,
and extending isotopies of plane continua, all of which have application in both topology and dynamical systems, will be
discussed.

Dynamical systems uses tools from many areas of mathematics, and motivates these same areas by raising questions, both
fundamental and applied. In the workshop, students and junior researchers, whose focus on the way to a PhD has necessarily
often been narrow, will be exposed to research techniques and results that draw from multiple sources. The areas of topology,
dimension theory, and dynamical systems traditionally have experienced overlapping research interests, but it is somewhat
daunting for students to acquire the background needed to work in the overlap. NSF support will enable at least 10 US-based
students and junior researchers to attend the workshop and expand their research horizons. Major speakers with international
reputations are being selected who are active in these research areas. The format of the workshop is designed to maximize the
opportunities for interaction among the participants beyond the lectures. Time is provided in the workshop schedule for both
formal talks and informal interactions among the junior and senior participants, including every afternoon an informal question
and answer session for the students and junior researchers with the day's speakers. The links formed are likely to have
continuing impact on the research direction of both junior and senior participants.

url: http://www.nipissingu.ca/topology